System and Communication Issues in Optical Networks

This project addresses major issues related to the design of metropolitan and nationwide all-optical networks. These are networks that attempt to use a substantial portion of the low attenuation bandwidth of single mode fiber (about 30,000 GHz) on each link of the network. Such nets switch data between links by all optical means, such as frequency selective couplers, avoiding the use of optoelectronics at the data rate, except at the periphery of the network. Major areas of emphasis are (1) link level issues: design and performance of optical demultiplexing filters, laser phase noise effects on performance including the effect of feedback stabilization, impairments in long distance multiuser communication including nonlinear effects such as amplifier saturation and Raman scattering; (2) theoretical and experimental work at the subsystem level: frequency stabilization at remote locations in a network, fast frequency identification in a distributed environment. The influence of these issues on network level issues will be a component of the work.